Oscillatory Zoning In Pyroxenes: Ion Probe and Modeling Studies/Visual Aid Equipment Supplement

Oscillatory zoning has been observed in crystals of a variety of minerals grown under a range of conditions - diagenetic, metamorphic, and igneous. Such undulatory zoning has often been attributed to corresponding, externally imposed variations in the growth environment. However, it has been shown via mathematical reaction-transport modeling that oscillation may arise spontaneously from the kinetics of grain growth coupled to transport of components in the medium from which the grain grows. The genesis of oscillatory zoning in pyroxene grown in magmas will be investigated using a combined ion probe and modeling approach. The zoning profiles contain a wealth of data which will be interpreted via equations of crystal growth and component migration in the melt. Model parameters will be constrained via available grain growth experimental data and the detailed zoning profiles. Developing a model capable of explaining oscillatory zoning will, in addition, give a more reliable tool for analyzing common crystallization phenomena. Because zoning of various types should occur in well defined ranges of growth conditions, the results also can be used to interpret the geologic record.